Postcensal Survey of Scientists and Engineers Pretest.

This action funds an Interagency agreement with the Bureau of the Census to support a pretest of the 1993 postcensal survey of college graduates. The postcensal survey collects data on education, training and employment related to science and engineering from a nationally representative sample of persons with bachelor's degrees (or higher). These data are used in NSF's Scientific and Technical Personnel Data System (STPDS).